MRI: Development of A Versatile Service-Oriented Wireless Mesh Network for Disaster Relief And Environmental Monitoring in Puerto Rico

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

Proposal #: CNS 09-22996
PI(s): Lu, Kejie; Rodriguez, Domingo
Institution: University of Puerto Rico - Mayaguez
Title: MRI/Dev.: Versatile Service-Oriented Wireless Mesh Network for Disaster Relief & Environmental Monitoring

Project Proposed:
This project, developing a versatile service-oriented wireless mesh network (WMN), VESO-MESH, that can be quickly built to respond to natural disaster, establishes a data intensive environmental monitoring application specifically addressing hurricanes and earthquakes. The VESO-MESH architecture aims to
- Integrate distributed processes and storage devices into the network so as to provide effective data process and access inside the network,
- Construct high-throughput backbone in WMN emphasizing the transmission of a larger volume of data, and
- Design and implement a set of service-oriented protocols to efficiently provide services to users inside the network and effectively utilize the network resources in terms of energy, processing, storage, etc.

Broader Impacts: The work promises to enable high-throughput data applications in disaster relief and environmental monitoring scenarios. It also plays a critical role in improving recruitment and retention of minorities at a large minority-serving institution with a high focus in engineering and a large enrollment of women. Curriculum materials will be developed and disseminated. The project provides educational and training opportunities for students at all levels in an EPSCoR jurisdiction.